Coelomocyte Activation and the Sea Urchin Immune System

The purpose of this investigation is to explore the immune system of the purple sea urchin, Strongylocentrotus purpuratus, and the molecular mechanisms of coelomocyte activation. The profilin gene (SpCoel1), cloned from coelomocytes, is upregulated in cells responding to injury or to injections of foreign coelomic fluid. This molecular parameter denotes changes that occur during activation of coelomocytes and will be used to assess the magnitude of responses shown by the sea urchin immune system to experimental challenge. We will identify stimuli that are most effective in maximizing the transcription rate of SpCoel1 and in activating coelomocytes. This analysis will indicate the recognition capabilities of the coelomocytes, and suggest the range of ligands these cells can detect. To further analyze the response to external stimuli, coelomocyte proliferation, including the time course of the appearance of new cells in the coelomic fluid, and the location of the proliferative centers in the animal will be characterized. Coelomocyte activation most likely involves the appearance of a number of new transcript species that are required for defense functions. Differences in the transcript population in activated cells compared to resting cells will be used to clone and characterize activation related genes. To provide a molecular understanding, the regulatory region of SpCoel1 will be analyzed by comparing protein-DNA binding patterns that regulate expression in activated and resting coelomocytes, and in early developmental stages when this gene is also expressed in cells that may be coelomocyte precursors. %%% The echinoderm immune system responds quickly and efficiently in protecting sea urchins from infection and repairing injuries. It is a non-specific system, the effector cells of which are the coelomocytes found within the body cavities. Although this system appears primitive compared to the mammalian immune system, it may be functionally homologous to important elements of higher vertebrate immune systems. Primary cellular responses in vertebrates that underlie adaptive immunity are mediated by cell types that also function in a non-specific manner, so the echinoderm defense system may not have changed much from the basic, ancestral form. Gene expression and the regulation of gene expression in invertebrate immune systems is an almost unexplored area of biology. Initial results of research on sea urchins have identified a critical gene that is activated in early stages of a defense response. Further studies of how this gene is regulated and how the gene-product functions in immune-cell activation will shed new light on the cellular mechanisms of non-specific immune function and how these ecologically important organisms defend themselves from injury or infection.